An Integrated Program in Calculus and Physics

A physicist and mathematician at Colorado School of Mines will combine efforts to develop and test an integrated calculus and physics course. A unique feature will be well-planned laboratory/workshops session where much of the integration of the subject matter will occur. These sessions will provide students with the opportunity to explore and discover the relationships between a physical situation, its graphical or geometric representation and the corresponding analytical representation. The workshop exercises will consist of physics experiments, numerical simulations, symbolic manipulations, computer programming and formal reasoning exercises. Study guides, problem sets and modular materials will be developed. The modules will be self-contained. There will be internal and longitudinal evaluation of students' progress, as well as external review of a National Advisory Committee.